Distributed Source Coding: Theory, Algorithms, and Applications

Abstract for the project:

Distributed source coding (DSC) refers to the compression of the outputs
of two or more physically separated sources that do not communicate with
each other. Driven by a host of emerging applications (e.g., distributed
sensor networks and wireless video), DSC has assumed renewed interest in
recent years. Although the theoretical result given by the Slepian-Wolf
theorem has been known for more than 30 years, practical approaches to
DSC did not appear until 1999.

Aiming to advance the field, this research covers the theory, algorithms,
and applications of DSC, with focus on the hard problem of practical code
design. The basic element of a distributed source code is the binning
scheme. For Wyner-Ziv code design, the PI proposes a paradigm based on
Slepian-Wolf coded quantization (SWCQ). Preliminary analytical results
show that the performance limits of SWCQ mirror those in classic source
coding. Initial code design based on TCQ and LDPC codes gives results that
are significantly better than any previously reported. Inspired by these
results, the PI proposes to study successive refinement for the Wyner-Ziv
problem and apply SWCQ to layered video coding.

This research will also tackle the more general problem of multiterminal
source coding under the same powerful paradigm of SWCQ. While asymmetric
Slepian-Wolf coding is used in SWCQ for Wyner-Ziv coding, for
multiterminal source coding with SWCQ, the PI will explore symmetric
Slepian-Wolf coding after quantization of each source. Both direct
multiterminal source coding and indirect multiterminal source coding
(e.g., the CEO problem that arises in distributed sensor networks) will
be treated.

The theme of the research is to view lossy DSC as a source-channel coding
problem and perform algebraic binning via the combination of quantization
and Slepian-Wolf coding based on channel codes. The main novelty lies in
using a single SWCQ framework as the embodiment of algebraic binning to
solve different code design problems and address potential applications.